Research in Hamiltonian Dynamics

Abstract DMS-0401334
PI: ZJ Xia

Conservative mechanical systems, such as our planetary system, are examples of Hamiltonian systems. Geodesic flows are other examples
of Hamiltonian systems. One of the most important problems in
Hamiltonian dynamical systems is whether orbits in typical systems are stable.
In fact, the stability of our planetary system has long been an important
subject of mathematical research. Hamiltonian systems usually exhibit some
extremely complicated and chaotic behavior. The proposed research will
address various problems related to stability and chaos, with research topics
such as the Aubry-Mather theory, Arnold diffusions, chaotic behaviors and the
Newtonian n-body problem. The ultimate goal is to show that typical near
integrable Hamiltonians in higher dimensions are topologically unstable.
The proposed research addresses problems with a long history and wide
applications to classical mechanics, celestial mechanics, as well as areas of
engineering. Professor Xia's research in Hamiltonian systems and celestial
mechanics has been featured in many popular science magazines, books and
even in some elementary undergraduate textbooks. Another aspect of this work, is the study
of escaping and capture trajectories in the three-body problem, which may have potential applications in NASA orbit design. Professor Xia will continue to be actively involved in student training at both graduate and undergraduate level.